Retention of Soluble Organic Nutrients in Ecosystems During Primary Succession and Soil Development

Abstract

Qualls

99-74062

Retention of Soluble Organic Nutrients in Ecosystems during Primary Succession and Soil Development

Primary succession is the process of development of an ecosystem on an area which has not been previously occupied by plants and animals, such a sand dune or a new volcanic debris flow. The establishment of a cycle of fertilizer nutrients (such as N and P) on these initially barren infertile sites is an essential part of this ecosystem development. While much of the emphasis on the cycling and leaching of nutrients after disturbance and during succession has been focused on inorganic nutrients familiar to every farmer -- nitrate, ammonia, and phosphate, organic nutrients are also released as vegetation dies and decomposes. We propose to define the role of leaching of soluble organic nutrients in ecosystem development during primary succession by comparing the retention or leaching of organic nutrients to the accumulation of soil nutrients, and to determine factors which control leaching of organic nutrients.